ITR: Million Book Project Equipment Funding

Creating a universal, free to read, digital library containing over one million scanned books
with optical character recognition to support full text searching is the goal of this million book
project. Such a resource furthers the democratization of knowledge by making this large digital
library available to scholars, students, and citizens around the world. The availability of online
search allows users to locate relevant information quickly and reliably thus enhancing student
success in their research endeavors. This 24x7x365 resource would also provide an excellent
test bed for further research in database creation, OCR technique, machine metadata creation,
and textual language processing research such as machine translation, summarization, intelligent
indexing, and information mining.

National Science
Foundation resources would be amplified at a rate of almost twenty to one because the countries
of India and China will be providing the labor to digitize these materials. In addition, members of
the U.S. Digital Library Federation would ship materials to be scanned and returned. Private
grant funding is being sought to cover shipping expenses.